Scientific Computing Research Environments for the Mathematical Sciences

Under the SCREMS program, the Department of Mathematics
at the College of William & Mary will purchase equipment
for the creation of a computing network dedicated to the
support of research in the mathematical sciences. The
award will provide funds for high-bandwidth networking
equipment, high-performance computers for numerical
calculations, and a file server. This equipment, together
with desktop machines providing platforms for smaller
computations, will provide a numerical/file server cluster
for the faculty investigators and students working on a
number of research projects. This equipment will be used
for computationally intensive research projects spanning
a wide range of applied mathematics. These include
numerical methods for engineering design, numerical
mathematics, computational biochemistry, and operations
research. The projects specifically included in the grant
are: (1) Efficient approaches to the optimization of systems
governed by partial differential equations, (2) distance
parameterized methods for molecular conformation, (3) a
parallel Hessenberg QR eigenvalue algorithm, and (4) the
calculation of the exact distribution of the time to
traverse a stochastic activity network and the elimination
of resampling error in bootstrapping.

PI Leemis and two former doctoral students have written
APPL (A Probability Programming Language). This Maple-based
language is used to compute probabilities and perform
operations on random variables. The size of many problems
that can be solved by APPL is limited by computing speed.
The speed offered by the hardware obtained as part of the
SCREMS grant is crucial to solving problems of the magnitude
encountered in practice.